Meta-logical Frameworks

Formal deductive systems play a central role in the areas of programming languages
and logics. Firstly, they are used to define languages and their semantics at a very
high-level of abstraction (e.g., type systems or operational semantics). Secondly,
they form the basis for the implementation of algorithms pertaining to languages
(e.g., type inference or interpretation). Thirdly, they provide a common basis for
the study of meta-theory of programming languages and logics (e.g., preservation of
types under evaluation).

Motivated by the tremendous variety of deductive systems of interest in com-
puter science and logic, general meta-languages for their specification have been
investigated by the author and others. These meta-languages are often referred to
as logical frameworks. When they emphasis is placed meta-theoretic reasoning they
have been called meta-logical frameworks. The primary objective of the proposed
work is to further the theory and practice of logic-independent, computer-assisted
formal reasoning and meta-reasoning.

This is a renewal of the current NSF Grant CCR-9619584. Prior relevant work
by the proposer and the results from the current grant include the design and im-
plementation of the logic programming language Elf based on the logical framework
LF, released in September 1998 under the name Twelf. Extensive case studies have
confirmed the wide range of applicability of the methodology underlying Twelf and
its extension to a linear type theory. The primary emphasis of the work proposed
under this renewal will be applications in education and research, and the practical
and theoretical issues suggested by these applications.